U.S.-Argentina Planning Visit: A Comparative Study of Breeding Birds of North Temperate and Subtropical/South Temperate Forests

9514388 Martin The long-range goal of the research is to provide new insights into well-known but poorly understood, broad patterns of nesting and foraging patterns of birds across the Americas. To add to 10 years of data collected on clutch sizes, nest predation rates, and food delivery rates for ground-nesting warblers and shrub-nesting thrushes in the north temperate forests, it is intended to study birds of the same genus or subfamily in the tropics, subtropics, and south temperate forests. This U.S.- Argentina Planning Grant will permit a planning visit to Argentina to establish a collaborative effort with Alejandro Brown of Universidad Nacional de Tucuman and to visit possible study sites. A critical first step is identification of a proper forest system where phylogenetically-related species are abundant and elevational segregation of species pairs is common. The work of Thomas Martin is well respected for its rigor and insight into nesting patterns, while the Argentine collaborator, Alejandro Brown, is an experienced field biologist in studies of foraging patterns. Both the potential for new insights through comparisons of closely related species in differing environments and the robustness added through the collaborative effort are benefits to be expected from research stemming from the planning visit. Results have potential for impact on wildlife management and, more broadly, on our understanding of ecological systems. Additionally, Martin will take a graduate student with him on the visit, providing valuable field work and international experience for a young scientist. ***